Study of Nuclear Physics with Intermediate Energy Probes

The proposed research consists of accelerator based experimental programs at three laboratories -Brookhaven National Laboratory, Thomas Jefferson National Accelerator Facility, and the European Synchrotron Radiation Facility. The experiments at all three facilities use photonuclear reactions to investigate the production of mesons and nucleon resonances, as well as fundamental properties of the neutron and proton. A dominant component of each program is the scattering of polarized photons from polarized nucleons. The experiments address fundamental questions in nuclear and particle physics.